NSF FF: Planning: From Watershed to Workforce Building AI, Data Literacy, and Career Pathways Through Community Science

This FINDERS Foundry award creates pathways into AI-enabled environmental science careers for middle and high school students. The project convenes a multi-stakeholder STEM learning ecosystem to co-design innovative approaches for integrating AI literacy, data science, and career-connected learning into place based community science education. The project addresses a persistent educational gap: students participating in authentic environmental science experiences often lack opportunities to analyze their data, understand AI-enabled scientific workflows, or connect these experiences to STEM career pathway. The proposed Foundry model emphasizes collaboration among schools, families, nonprofit organizations, researchers, and technologists, while supporting student engagement in authentic scientific problem-solving connected to local ecosystems and community priorities. Broader impacts include the development of scalable frameworks for integrating AI literacy and data science into outdoor and community science education; increased awareness of STEM and AI career pathways among students and families; strengthened educator capacity to support AI-supported inquiry; and the creation of a replicable model that can be adapted by other districts and community science programs nationwide.

This FINDERS Foundry award advances emerging research and practice at the intersection of AI literacy, community science, environmental STEM education, and career-connected learning via outdoor education and community science. By bringing together researchers, educators, technologists, families, and students in a structured co-design process, the project will generate new knowledge about how AI-supported inquiry tools can strengthen student data literacy, scientific agency, and understanding of environmental data systems within authentic learning environments. By exploring how students in place-based learning contexts engage with scientific workflows and environmental datasets, this project contributes to the growing field of AI education. The resulting Foundry model informs future development and research efforts focused on integrating AI literacy and data science practices into outdoor education and community science ecosystems.